A High Resolution Study of Linear and Nonlinear Interactions Within the Equatorial Pacific Carbonate System Over the Past 4 Million Years Using Grape as a Carbonate Proxy

9410844 Hagelberg A high resolution study of linear and non-linear interactions within the Equatorial Pacific carbonate system over the past 4 m.y., using GRAPE as a CaC03 proxy. Record of this proxy from ODP Leg 138 and its detailed oxygen-isotopic data will be used to learn more about the dynamics of the carbonate system.